POWRE: Studies of Excited Atomic and Molecular States

This POWRE award provides funding that would allow the PI to expand on the initiation of a new activity that began as a consequence of a career transition from a large research institution to a smaller undergraduate institution. Funds will be used to conduct first experiments and to foster the educational component associated with the research activity. The research program itself focuses on the investigation of excited states of small molecules, states that are interesting from the fundamental points of view and states that are important in atmospheric photochemistry, combustion, and molecular reaction dynamics. The award is funded by the NSF POWRE program, the Office of Multidisciplinary Activities in the MPS Directorate, and the Physics Division.